Equipment Proposal-All-Solid-State Broadly Tunable Femtosecond Optical Parametric Oscillators

ECS-9713443 C. L. Tang This proposal is seeking funding to purchase a diode-pumped Nd: YVO4 laser for the research on solid-state broadly tunable femtosecond optical parametric oscillators that has been supported by NSF under award ECS-9705704.